CSR: Small: Nested Distributed Software Transactional Memory: Protocols, Mechanisms, and Java Package

In this project, protocols, mechanisms, and a Java implementation of
nested distributed transactional memory (TM) are developed. Distributed TM promises
to alleviate the programmability, scalability, and performance challenges of lock-based
distributed concurrency control. Emerging distributed TM implementations export
a simple programming interface that precludes locks and are yielding performance
comparable to, or better than lock-based distributed concurrency control. Nesting is
essential to distributed TM for composability, functionality, fault-management, and
performance.

The project is developing protocols and mechanisms to support closed and open
nesting in distributed TM. Closed nesting allows a nested transaction to be aborted
without aborting the parent transaction, but not vice versa. Open nesting allows a
parent transaction to be aborted without aborting the nested transaction, and vice
versa, permitting greater concurrency. To support these nesting models, the project
is developing distributed transactional conflict resolution protocols, distributed
cache coherence protocols, and mechanisms for transparently executing
compensating transactions to undo the effects of committed transactions. The
project is implementing these techniques in the open-source, HyFlow distributed
TM Java package (hyflow.org).

The project is also transitioning this technology (techniques and HyFlow
implementation) to US Navy's Aegis Combat System, which uses distributed
concurrency control. Additionally, the project's results are being incorporated into
advanced graduate courses at Virginia Tech that includes students at Blacksburg,
VA, scientists and engineers at US Naval Surface Warfare Center Dahlgren Division
(NSWCDD), VA (through Virginia Tech's graduate outreach program at NSWCDD),
and students in the Middle East and North Africa through Virginia Tech's VT-MENA
program at Egypt.